U.S.-Czech Joint Fund Research on Phase Structure and Segmental Dynamics in Polymer Systems

The primary objective of this US-Czech Joint Fund research project between Dr. Jan Pilar, the Institute of Macromolecular Chemistry, Czech Academy of Science and Dr. Shulamith Schlick, University of Detroit, is to gain a better understanding of segmental dynamics and phase structure of polymers and their complexes in dilute solutions and solid polymer blends by means of Spin Label Electron Spin Resonance (ESR) and Differential Scanning Calorimetry (DSC). The information on dynamics will be obtained by analyzing line shapes of ESR spectra of spin labels and/or spin probes incorporated in the polymer systems; the phase structure will be characterized by both ESR and DSC data. An ESR imaging system will be used to gain a spatial resolution of ESR data. This research in materials research fulfills the program objective of advancing scientific knowledge by enabling leading experts in the U.S. and Czech Republic to combine complementary talents and pool research resources in areas of strong mutual interest and competence. Funds for the project are awarded through the US-Czech Joint Fund, Prague, in accordance with established guidelines.